RUI: Computer Search for Elusive Combinatorial Congfigurations: A Research Toolchest

The role of the computer in the search for new exceptional combinatorial configurations, as well as in the proofs of their nonexistence, has been increasing over the last few years. It is now an indispensable tool in research in this area. There have been many attempts to build appropriate software in this direction worldwide, but none with the range of specific goals proposed here. The four areas of interest are: balance designs, Ramsey graphs, perpendicular arrays and set coverings systems. Previous research in these areas repeatedly called for similar algorithms, which were implemented in an ad hoc manner, depending on the particular situation. There were even variations of the same algorithm within the same area. A principal goal of this one year project is to refine, streamline and package the existing algorithms, using agreed upon uniform data structures. With these algorithms one can devote more attention on the theoretical properties of the set systems rather than on programming. Particular attention will also be focused on finding some new important configuations.